Design and Control of Multi-Degree-of-Freedom Vehicles for Industrial Applications

The research is to develop hardware and control software for multi-degree of freedom (MDOF), Automated Guided Vehicles (AGV). Though the benefits of MDOF AGVs are well known, in terms of high maneuverability, their utilization is not universal because they represent a very difficult control problem. This is because MDOF AGVs are characterized as an overconstrained system from a control perspective and prototypes that have been developed by industry have been plagued with control problems described as shaking and slipping. Preliminary investigation of this problem reveal that the combination of specially designed drive kinematics and special control algorithms are likely to yield satisfactory solutions to this problem. This research will include the development of a prototype to test the system. The successful development of MDOF AGVs will allow the implementation of this level of automation in existing, older manufacturing facilities with only minor modifications to plant layout. This will have an impact on the manufacturing productivity of older industry segments and provide international leadership to the domestically based AGV industry.